Testing and Modelling of Saturated Interfaces Under Cyclic Loading

The research is aimed to delineate the effect of relative motions at interface on dynamic response of structures and foundations. It will provide a new and improved understanding of the mechanism of load transfer in dynamic soil-structure interaction as affected by roughness and fluid pressures. It is anticipated the outcome will lead to improved designs of a wide range of geotechnical problems. A new test box will be developed to simulate behavior of saturated sand-concrete interfaces. A comprehensive series of laboratory tests will be performed and used for the development of a constitutive model based on the disturbed state concept and hierarchical plasticity models.